Marketing the Genetic Revolution

This project investigates ethical issues arising from the commercial exploitation of emerging genetic technologies. In the near to far future, it is likely that a wide range of genetic tests will become available to detect disease or genetic predisposition or to locate individual position along the normal range of distribution of various traits. Genetic interventions will include both direct gene change and the creation of drugs to mimic or change genetic expression. Commercialization of these technologies will transform the market. Depending on public policy and personal choices, individuals may be able to enhance their or their progeny's natural endowments, or to sell copies of their genes. As this market expands, other social institutions, like families and educational systems, will feel the effects. The objectives of this project are (1) to identify the chief ethical issues that will arise as market forces play an increasing role in the deployment of genetic technologies; and (2) to formulate the types of ethical considerations that ought to be taken into account by policy makers in deciding whether or in what ways to regulate the genetic marketplace. The project methodology is reflective ethical analysis (REA). REA involves the identification and careful reconstruction of public and policy debates concerning how individual and social institutions should respond to these new developments. The ethical principles and factual disputes underlying these positions are identified. Relevant existing empirical studies are examined to respond to what may have been taken to be ethical disputes. The need for additional empirical research is noted. Techniques for balancing conflicting ethical principles are applied to remaining ethical conflicts. In cases of intractable disagreements, unacceptable options may still be excluded and a range of ethically acceptable options may be identified. Research results will be prepared for publication in at least two primary articles dealing with the two objectives above. They will meet high standards of scholarship, but they will also be presented in a form which is accessible to a broad audience of policy advisors and policy makers. Additional publications targeted at specific professional and lay audiences will also be prepared.